REU Site in Integrative Cellular and Molecular Biology

The Department of Biological Sciences at the University of Notre Dame is sponsoring a NSF-REU Site for undergraduate research during the summers of 2005 - 2009. The focus of the proposed REU program is "Integrative Cell and Molecular Biology." The primary goals of the program are to 1) expose students to the excitement of scientific discovery, 2) help students develop the skills needed to generate, analyze and report scientific data, 3) educate students on the professionalism needed to succeed in graduate school and beyond, 4) give students opportunities for leadership roles, and 5) encourage students to be responsible scientists and citizens by providing service opportunities. To reach these goals, participants will carry out research projects for 10 weeks. During these 10 weeks, they will formulate their own research project, speak on their proposed work twice, attend and coordinate a weekly seminar program to develop professional and leadership skills, attend weekly journal clubs where students present current published research, and participate in an optional service component mentoring high school students. The underlying aim of the program is to give students strong incentives for pursuing careers in research. Information can be obtained by contacting the Dr. Michelle Whaley at [email] or by visiting http://www.nd.edu/~biology/reu/indexpageA.htm